U.S. - Germany Workshop on Polymers, Evanston, IL

0080058
Burghhardt
This award supports Wesley Burghardt and Coleen Pugh of Northwestern University to hold a U.S.-Germany joint workshop on polymers in Evanston, Illinois, Aug. 5-10, 2000. This is an important symposium of major potential impact on the field of polymers. The topics are excellent and include biopolymers and biomaterials, synthetic methodologies, and processing in supercritical fluids. The participants represent a very diverse cross-section of the community, including underrepresented groups. Furthermore, the PIs are top young educators and researchers in the field. Previous workshops of this type have established a tradition of high reputation and of forging close ties between emerging young scientists of both the U.S. and Germany.